Acquisition of a Scanning Transmission Electron Microanalytical System

This project will provide a scanning transmission electron microscope (STEM) and computer interfaced microanalysis system for fundamental characterizations of advanced materials, including steels, structural and electronic ceramics, welding materials, and surface-modified alloy systems. The STEM will have a LaB6 filament, 200 kV maximum accelerating voltage, 0.14 nm lattice resolution, a scanning system with backscattered and secondary electron detectors, and a high resolution Si(Li) x-ray detector. This instrumentation will make possible high resolution definition of fine structure in materials, fine-scale micro-diffraction of phases, and microchemical analysis of the distribution of elements in the various phases of the complex material systems to be examined. This information is essential to optimize the properties and performance of existing structural and electronic material, and to design new materials and processes. The instrumentation will be housed adjacent to the scanning electron microscope and transmission electron microscope already in place, and will be schedule and maintained by the electron microscope laboratory coordinator now on campus.